2013 Tissue Engineering & Regenerative Medicine International Society (TERMIS) Conference, November 10-13, 2013, Hyatt Regency, Atlanta, GA

1347082
Guldberg, Robert E.

This conference award will support the annual meeting of the Tissue Engineering and Regenerative Medicine International Society, Americas Chapter (TERMIS-AM) aims to: (1) provide a forum for leading scientists, engineers, clinicians, and industry and government representatives in the field of tissue engineering and regenerative medicine to discover, discuss and interact, and (2) facilitate networking, professional development, and mentoring of students and young investigators to encourage them to embrace and advance the field of tissue engineering and regenerative medicine. The Conference and Exposition, scheduled for November 10-13, 2013 in Atlanta, Georgia, will address the scientific and engineering basis for tissue engineering-based repair, regeneration, and treatment of tissues and organs with focus areas of Cellular Engineering, Synthetic Biology, Cellular Reprogramming, and Rejuvenating Tissue/Organ Function, among others. The conference will advance knowledge within the broad, cross disciplinary community of those engaged in tissue engineering and regenerative medicine through the presentation of knew and transformative research.

The multidisciplinary focus of the conference and diversity of attendees has the ability to impact many sectors of engineering, science, and medicine. The global nature of TERMIS will provide for international perspectives and will lead to new international collaborations.
This conference has the ability to impact several levels of attendees, with particular focus on women, students and young investigators through the activities and events planned. Additionally, inclusion of underrepresented high school students will be a part of this conference event. This conference will inspire and help train the young future leaders of tissue engineering and regenerative medicine.